Feasibility of Seismic Retrofit Using an Energy Dissipating Cladding System

In Seismic Zone 4, there are many older, existing buildings that do not meet the lateral strength, drift control, and ductile detailing requirements of the 1991 Uniform Building Code. A preliminary study using hypothetical buildings indicates the additional strength, stiffness, and energy dissipation can be provided by a non-invasive retrofit scheme involving the replacement of the existing cladding with structural (steel) panels and energy dissipating cladding-to-frame connections. To examine this retrofit scheme in detail, two older, existing buildings will be studied. A preliminary design will be done first, which includes: (1) design decisions regarding the relative structural contributions of the existing frames and the cladding system to the retrofit building system; and (2) for the cladding system, design of practical cladding-to-frame connections and their attachments, and development of a design procedure for the cladding panels. The feasibility of this seismic retrofit scheme will be assessed analytically by subjecting the retrofit perimeter frames to a set of ground motions with ranges of peak ground accelerations, predominant frequencies, and durations. The research will advance the state-of-the-art in passive control of structures in two ways: (1) by identifying conditions under which the structural characteristics of cladding and cladding-to-frame connections can be effective and efficient, and (2) by providing a foundation for the development of rational guidelines for the designs of energy dissipating cladding systems for either existing weak buildings or newly designed buildings.